ITR/SY+IM(CISE): Self-Calibrating, Scalable Displays for Digital Library Collections

The primary goal of this project is to design, implement and test a new display system for digital libraries.
It is motivated by the lack of display capabilities in most systems today; we need more screen resolution and screen size. This project will combine commodity video projectors and computing equipment with software to provide automatic calibration and to provide better interfaces to visualization techniques. This will be of value in virtual reality environments and scientific data analysis environments as well as in digital library implementations. The project will be done in partnership with a library at the University of Kentucky and a computing facility at the University of Puerto Rico.